Fault-Tolerant Programming

A fault-tolerant, distributed program is a program that can continue executing despite processor and network failures. The general goal of this research is to develop techniques and support systems that facilitate the design, construction, and verification of this type of software. To accomplish this goal, a number of topics will be investigated in areas ranging from communication protocols to formal verification. In particular: operating system support for fault-tolerant, distributed programming; programming language abstractions that facilitate construction of fault-tolerant, distributed systems; extension of existing software engineering techniques and programming environments to encompass fault-tolerant programming; and verification of fault-tolerant programs will be studied. The first, second, and fourth topics represent the continuation of investigations currently underway and natural extensions in those areas, while the third is a new initiative. Since fault-tolerance is difficult to study in isolation, this work is based largely on existing systems and languages, including the SR distributed programming language, the Psync interprocess communication mechanism, and the Software Designer's Associate project. This approach also facilitates immediate progress on research issues by eliminating the need to construct necessary infrastructure.